Collective Modes in Superfluid Fermi Systems

9309061 Ketterson This project is devoted to the study of the order parameter collective modes in the condensed matter systems, principally superfluid 3He and superconducting UPt3. Superfluid 3He is known to have an unconventional superfluid order parameter and there is growing evidence that the same is true of UPt3. This project will continue investigations of collective mode phenomena in superfluid 3He with special emphasis on shear wave propagation and electric field effect splittings. A prediction by the principal investigator, that many collective modes (not just nmr) can be made for the order parameter collective modes in UPt3 using ultrasonic attenuation or electromagnetic absorption. Their observation would establish the existence if this phenomena in a superconductor (a topic that has long been debated since the development of conventional superconductor theory) and could open the way to their observation in conventional superconductors. %%% Quantum systems exhibit complex wave or Vibrational behavior which can be probed by sending sound waves or magnetization waves through them. Similar techniques can be used to probe the degree to which a system is magnetic or superfluid or superconducting. This project uses novel acoustic and other means to study a special superfluid 3He and a so-called unconventional superconductor, UPt3. The experiments will shed light on why all superconductors are not the same, and will provide fundamental information that will be of interest in practical superconductors, the high-Tc superconductors, and other complex assemblies which include liquids, solids, nuclei and even neutron stars. ***